REU: Evolutionary Biology at the American Museum: Under- Graduate Research Experience in An Interactive Environment

This award will establish a Research Experiences for Undergraduates Site at the American Museum of Natural History in the area of evolutionary biology. Drawing on the research and teaching expertise of the Museum's outstanding scientific staff, the program revolves around projects carefully designed to introduce undergraduate level students to the excitement and challenge of original research in evolutionary biology. Included in the program structure is a series of bi-weekly meetings at which students will discuss their research, present informal progress reports, and take part in discussions and seminars on graduate and research career opportunities. At the end of the program students will participate in a seminar where they will give a formal presentation for their work. The AMNH will institute a follow-up program for REU participants aimed at encouraging them to pursue careers in science.